UCAR Educational Outreach Program and Other UCAR Activities

This CSA will support UCAR Educational Outreach and related activities. The activities will include, but not limited to, the UCAR's Visiting Scientist Program, the Postdoctoral Program in Ocean Modeling, the Cooperative Program for Operational Meteorology Education and Training, and other workshops and colloquiums enhancing disseminating information related to atmospheric sciences.